Scholarships for Undergraduates: Focus on Computational Biology

Approximately twenty five scholarships in amounts ranging from $5,000 to $10,000, based on the cost of attendance, are being awarded annually to academically talented, financially needy students majoring in biology, mathematics or computer science. An emphasis is being placed on computational biology thus, complementing the thriving industry in North Texas that is built upon these skills. The student body at the institution is over ninety percent female and approaching fifty percent underrepresented minorities. Consequently, the project is a significant force in the national effort to increase the participation of members of these groups in STEM fields.